Improved Indicators of Science and Mathematics Learning: A Multi-State and School Initiative

In order to measure learning in science and mathematics, the Connecticut State Department of Education, in collaboration with 7 other states and the Coalition of Essential Schools (a network of schools dedicated to innovative learning of a common core curriculum in science, mathematics, and the humanities) proposes to develop appropriate assessments in science and mathematics that transcend mere multiple-choice tests. These will consist of complex situations that measure students' knowledge and understanding, as well as necessary skills and competencies. These "performance-based assessments" will employ collaborative learning, and involve the design and execution of field and laboratory investigations. The collection, analysis, interpretation, and clear reporting of data will be an essential part of the assessments. Some of the problems to be solved will require a short amount of time, while others may last a month or more. The development of this program will take 31 months, and will include the participation of knowledgeable individuals (both content experts and exemplary classroom teachers) from CT, MI, MN, NY, TX, VT, and WI. The CT assessment will be administered to a statewide sample in the spring of 1991. The bases of the assessments of the CT common core of essential learning standards include a number of national recommendations (NCTM, 2061, MSEB, NSTA and so on. The assessment tasks will be designed to represent active learning and which include divergent as well as convergent thinking. The tasks will also be designed to be as useful for instruction as assessment and serve as a catalyst for the learning valued in CT and the national recommendations from the content-focused reports mentioned above. The final goal of the project is to determine if such assessments and the evidence they generate can be aggregated into meaningful summaries for state accountability purposes. Amount of Award over 45 months $997,956 (reduced from original request of $1.6 million over 31 months) - initial FY89 funds award $500,000. COST SHARING - $874,150 in direct cost sharing equals 88% of the NSF award.